University of Alaska Fairbanks/Sikuliaq Shipboard Scientific Equipment (SSSE) - 2021

Project Summary

The University of Alaska Fairbanks (UAF) operates R/V Sikuliaq, a 261-foot, global class ice-capable oceanographic research vessel owned by the NSF as part of the Academic Research Fleet (ARF) fleet. Sikuliaq provides a general-purpose platform for multidisciplinary research missions from polar to temperate latitudes. UAF requests funds to purchase and install Shipboard Scientific Support Equipment that would enhance the vessel's capability in support of NSF-sponsored research to be undertaken on Sikuliaq in the future.

In 2020, during the pandemic-shortened season, Sikuliaq completed 134 days 124 (93%) of which were for NSF. In 2021, the vessel is scheduled to sail 220 days with 124 (56%) days of the schedule for NSF. With this proposal, UAF provides technical descriptions and rationale for the acquisition of the following Shipboard Scientific Support Equipment.

1) Electro-Optical Slip Ring Assembly $24,972

Broader Impacts
The principal impact of the present proposal is under Merit Review Criterion 2 of the Proposal Guidelines (NSF 19-602). It provides infrastructure support for scientists to use the vessel and its shared-use instrumentation in support of their NSF-funded oceanographic research projects (which individually undergo separate review by the relevant research program of NSF). The acquisition, maintenance and operation of shared-use instrumentation allows NSF-funded researchers from any US university or lab access to working, calibrated instruments for their research, reducing the cost of that research, and expanding the base of potential researchers.